Calculus with Computing: A National Model Course

The curriculum is being developed to present calculus as the language of science. Beginning calculus is being treated as a laboratory course with modern computers and scientific software as the laboratory equipment. This development is built on a long history of successful use of computers in a calculus laboratory and will make use of new software so that students have a serious start on their education in scientific computation.